Science Workshops for Elementary Teachers: A Partnership

This project is a continuation and extension of a partnership which has developed between Henderson State University of Arkansas, the Mid-American Museum and Arkansas Power and Light Company. The partnership has developed, through private funding, a number of different topically oriented science kits which fit appropriately with the curriculum framework of the state. The project will be conducted during the summer of 1990 using laboratory and classroom facilities of Henderson State University and the interactive exhibits of the museum to provide a two-week workshop for two master teachers from each of the sixteen educational cooperatives which cover the whole state of Arkansas. The lead teachers will be using these kits which will be further enhanced and adapted from the existing activity based materials. The participants under the supervision and guidance of the project staff will conduct in- service workshops in their local areas with the cooperation of their local education cooperative. These state-administered cooperatives will facilitate the inservice efforts in the schools within their regions. Needs assessment and field experience has demonstrated the need for this inservice training. The immediate goal is to established a cadre of well-prepared elementary science teachers, but the long range goal is to upgrade the skills of large number of elementary teachers and to provide a model for other university-museum- industry partnerships. Because of the comprehensive nature of the project, the potential for change in the direction of an activity-based elementary science program, as a result of this grant, is far-reaching. The Museum is contributing it facilities, expertise and the actual kit development, while the Power Company is contributing the cost of all the materials for the workshop which will then be returned to the schools. The total cost-sharing by three partners is equivalent to 28% of the NSF grant request.